International Workshop on Robust Control, April 12-17, 1992 Ascona, Switzerland

Robust control has become the central focus of control systems research over the last 12 years. The objective of this project is to bring together leading international control researchers to asses the state of knowledge in the rapidly advancing field of parametric robust control. This workshop will bring together experts from each of this area. The papers presented at the workshop will be published in book form. The results of the workshop will have a very significant international impact on research, education, and engineering applications of robust control for many years to come. The proposal presented here seeks partial financial support for the 16 invited participants from the US.